Combinatorial problems arising in finite group theory, 3-manifold topology and other areas

DMS-0300483
Shareshian, John

Abstract

Title: Combinatorial problems arising in finite group theory, 3-manifold
Topology and other areas.

Shareshian works on combinatorial problems with applications
in other fields. His joint work with R. Roberts and M. Stein
involves using the theory of group actions on tree-like objects
to investigate foliations of 3-manifolds. His joint work with
R. Guralnick on actions of symmetric and alternating groups on
k-sets is used to investigate monodromy groups of branched
coverings of the Riemann sphere. His joint work with M. Wachs
and others on graph and hypergraph complexes has applications
in commutative algebra, finite group theory and knot theory.
His work on topology of order complexes of intervals in subgroup
lattices is intended to provide a new approach to a longstanding
problem in universal algebra.

The principal investigator works on various problems in
combinatorics. Roughly, combinatorics is the study of discrete
(often finite) mathematical objects which admit fairly elementary
descriptions but whose structure can be quite complicated. It is
often the case that problems in other disciplines (such as computer
science, electrical engineering and biology) and other more
technical and abstract areas of mathematics can be reduced to
combinatorial problems.